Dissertation Research: Evolution of Skull Shape in the Caniformia (Mammalia; Carnivora)

Funds are requested to aid in the creation of a video archive of fossil and recent carnivoran skulls, from which skull shape data will be acquired photogrammetrically. Description of skull shape by a statically determinate truss network of short distances will avoid several problems of many previous morphmetric data sets. ANalysis of variation in skull shape within species will be used to derive shape characters suitable for cladistic phylogenetic analysis. Mapping of skull shape characters onto independent hypotheses of caniform phylogeny will permit the analysis of several problems: (1) the coevolution of skull shape characters, (2) the coevolution of skull shape with functional traits, and (3) the relationship between within-population covariance and directions of evolutionary change. Data on well-preserved fossil skulls of carnivorans and creodonts will be crucial to these analyses, in order to establish the primitive states of skull shape characters. Analysis of skull shape should also provide new evidence for the taxonomic affinities of problematic fossil taxa.